Partnerships for Leadership in Science Teaching

The School in the Exploratorium (SITE) is implementing a three year multi-tiered program designed to prepare a cadre of 37 Lead Science Teachers from the San Francisco Unified School District and from Marin County school districts to implement district-wide hands-on science teaching. Working in partnership with the newly implemented SFUSD's San Francisco Science Leadership Project and similar projects in the Marin County districts, SITE will provide intensive training in physical science, inquiry-based learning and school leadership for the Lead Teachers to support implementation of hands on science and the introduction of the new California State Science Framework. This project will result in the creation of 34 Lead Schools in which the Lead Teachers will work with 74 colleagues also trained by SITE, to conduct on-site workshops for their colleagues and principals both in their schools and throughout the districts. Additional activities include year-long internships for twelve science specialists for the districts. These specialists will have experience planning inservice, working with students, mentoring teachers, and planning for district wide change. Each school district has made arrangements for these specialists to take on positions of leadership and continue in that role after the NSF support is completed.